REU Site: Research In Astrophysics at the Smithsonian Astrophysical Observatory

The Smithsonian Astrophysical Observatory will continue its long-running summer REU (Research Experiences for Undergraduates) program. In addition to a 10-week summer research internship working with scientists at the Harvard/Smithsonian Center for Astrophysics (CfA), students will engage in numerous professional development activities, including computer tutorials, research-training seminars, and directed meetings with astrophysicists at all career stages. Students will also attend group discussions on the ethical conduct of research, graduate school life, admissions, available fellowships, and career opportunities after graduation. Since 1994, over half of the interns have been female, and a small but increasing number from underrepresented groups. More than 80% of the participants in this REU Site have entered into graduate school in the STEM fields.

Each summer, eleven students will spend ten weeks conducting leading-edge research with their mentors at CfA. Scientists at the CfA are involved in virtually every area of astrophysics and have access to a large number of modern scientific instruments, so students have a broad range of projects to choose from. The student research experience will be completed by a trip to the winter AAS meeting, where each intern will present a poster.